Biological Sciences S-STEM Project at NNMC

This project is supporting full-time students in the newly-established baccalaureate Biology Program. Each year of four years we anticipate supporting 10 students with full scholarships of $10,000 per year, and 6 students with partial scholarships of $5000 per year. The determination of full vs. partial scholarships is based on financial need. The objectives of the program are a) to enhance recruitment into the new baccalaureate program in Biology, b) to allow working students to become full-time students, c) to increase retention rates and to monitor the students' progress to ensure completion of degree requirements in a reasonable amount of time, and d) to prepare the students to gain additional educational experience at the graduate or professional school level, or to obtain employment in research-oriented industry.